Design, Performance Evaluation and Implementation of New Network Architectures for High Speed Optical LANs: Tree Networks with Collision Avoidance

Professor Suda will investigate a new class of local area network architectures that use collision avoidance switches. The switches allow the implementation of random access protocols without the penalty of collision among packet. They combine the benefits of random access (i.e. low delay when traffic is light; simple distributed, and therefore robust protocols) with excellent network utilization and concurrency of transmission. In this research project, the principal investigator will investigate (1) several variations for station protocols and switch architectures, (2) design and prototype implementation of a switch using photonic devices, and (3) performance (e.g. delay and throughput) of the network architectures through analysis and simulations.